A Probabilistic Model for Microstructure Evolution with Application to Smart Concrete Materials

The project proposes to formulate methods for representing and analyzing random
heterogeneous materials in three directions. First, general probabilistic models are developed
for the microstructure of cement based composites with carbon fibers. The models
are random fields characterizing the geometrical, mechanical, and electrical properties of the
material constituents. These cement based composites have an interesting microstructure,
and are used in both mechanics and electronics as sensors of mechanical properties. Second,
a computational environment is developed for calculating the evolution in time of the
properties of microstructures subjected to deterministic loads. Finite element procedures
are used to calculate changes in, for example, the stress, strain, damage and electric fields
in cement based composite specimens generated from their probabilistic models. Development
of the finite element code entails advances in numerical solver techniques as well as
formulation of new mathematically sound traction-displacment relationships to model cohesive
fracture. Third, the results of the finite element analyses are used to (i) update
the probabilistic models of the material microstructure so they reflect the current damage
state and (ii) develop macroscopic damage models for cement based composites by using
homogenization procedures.
The evolution of the material state is monitored by a mathematical object, referred
to as digital material (DM), that defines uniquely the state of the microstructure at any
time during loading and can be stored in the computer. The results of the analytical and
numerical developments are validated against experimental tests providing information of
the properties of the fiber matrix interaction and on the dependence of electric conductivity
of macroscopic specimens on their damage state.
The main outcome of the project is a novel methodology for predicting structural behavior
of composite materials and for designing materials with better structural properties
and better capabilities for sensing damage and strain. Other outcomes include new finite
element codes, new mathematical models, and a strong educational outreach program.